Neuranatomical Organization of the Central Visual Pathways in Rana Pipiens

A major objective of the research proposed is to further advance our basic knowledge of the organization of central visual pathways, including the optic nerve, the relationship of cell groups in the optic chiasm to the divergence of the optic tracts, and the innervation of multiple central targets. A major focus is upon two major extratectal nuclei, the accessory optic nucleus and pretectal nucleus lentiformis mesencephali and their interrelationship. These studies are relevant to understanding how the retina innervates multiple targets in more complex species, as well. The proposal addresses the following questions: 1, to what degree are retinal axons within the optic nerve organized by morphological type; 2, what is the nature of the spatial transformations of retinal axons within the optic nerve and chiasma; 3, at what point do retinal axons separate into fascicles bound for specific target destinations; 4, what is the relationship of these optic fascicles to cell groups of the hypothalamus in the immediate vicinity of the optic chiasm; 5, how are axons arranged within each of the optic- tract fascicles; and 6, how are the different arrangements of axons, i.e., retinal topography, morphological type of axon and central target destination interrelated? A second major objective is to further clarify the dual organization of the accessory optic system and its interrelationship with the pretectal nucleus lentiformis mesencephali. Ultrastructural techniques will be used to examine central-retinal vs. peripheral-retinal innervation of the basal optic nucleus via medial and lateral fascicles of the basal optic root, respectively. An ultrastructural analysis of the efferent projection from the accessory optic nucleus to the pretectal nucleus lentiformis mesencephali is also proposed. %%% For more than 50 years, the amphibian visual system has been the focus of a broad range of investigations that have provided a major source of knowledge about the basic organization of the vertebrate visual system, particularly the retina and subcortical visual pathways. Evolutionarily, amphibians are among the oldest vertebrates which possess the major retinal projections which occur, generally, in vertebrates.